High Performance Network Connection (HPNC) Workshop at Marist

April 21, 2003 is the closing date for NSF's High Performance Network Connections (03-529) solicitation. HPNC proposals are complex documents that include many nuances and requirements. This workshop will take the participants through the proposal preparation process and assist investigators in developing their proposals. This workshop will cover the technical, administrative and research justifications that are required, and the workshop will address budget, format and narrative requirements.

The workshop will be a one day event, facilitated by experienced individuals. The workshop is open to all potential PIs. PIs who have not had previous experience writing a proposal and PIs from institutions underrepresented in the advanced networking environment are particularly encouraged to attend.